Research Experiences for Undergraduates (REU) Site in Observational Astronomy at Cornell University

9322011 Terzian Cornell University will continue the Observational Astronomy program established in Summer 1989, and further developed from 1990, in which undergraduate students are involved in the research activities of the astronomy group at Cornell University. The undergraduate students will work with members of the Cornell faculty/radar astronomy, and other related topics. The students' research at Cornell will also provide them the opportunity to participate in astronomical observations at a facility used by Cornell researchers. The students will also be encouraged to participate in the Undergraduate Research Forum, which is held annually at Cornell University, to present and discuss their various research projects with other students. The Undergraduate Research in Observational Astronomy program will encourage participation by students who are women and minorities and whose own institutions do not provide this kind of research experience for their own undergradautes.